Mid-Atlantic Mathematical Logic Seminar (MAMLS)

The Mid-Atlantic Mathematical Logic Seminar (MAMLS), formed in
the fall of 1982 under the aegis of Lee Stanley, has supported 3-4
regional meetings per year of 1-2 days' duration since then. These
meetings are held at various locations and cover a broad spectrum of
mathematical logic with particular emphasis on complexity theory,
theoretical computer science, fragments of arithmetic, pure and applied
model theory, proof theory, recursion theory, set theory,
subsystems of analysis in accordance with the program of H. Friedman
and S. Simpson, and topos theory. NSF support is provided for some
of the expenses of the speakers and attendees, in particular of the
graduate students.

Via the meetings sponsored, the MAMLS grant maintains the
vitality of the field of mathematical logic. Special emphasis is
placed on enhancing the participation of younger researchers and
members of traditionally underrepresented groups, especially women.
This is done by providing an intellectual forum in which all interested
persons are invited to contribute and in which there are lectures on
current topics of research.